Gordon Research Conference on Granular & Granular-Fluid Flows

Abstract

Proposal Number CTS-0209414
Principal Investigator Shinbrot, Glasser, and Storm
Affiliation Rutgers U
Title Gordon Research Conference on Granular and Granular-Fluid Flows

The Proposal is seeking support for the first Gordon Research Conference on Granular and Granular-Fluid Flows, planned for June 30 - July 5, 2002. Granular flow is an integral part of many industrial and technological processes including composites and pharmaceuticals to materials processing and semiconductor manufacturing. The conference is organized to focus on recent developments and emerging areas of research as well as discussion of the open questions in the field. Also, the conference promotes collaborations between various disciplines which overlap with the subject area of the conference.